Industry/University Cooperative Research: The Measurement of Electrical Properties of Supported Metal Crystallites Using a Microwave Hall-Effect Technique

This research program will use a new application of the microwave Hall-effect to probe the physics and chemistry of very small metal particles on non-metallic supports. This catalyst class is of interest for a wide variety of chemical synthesis. The results of this investigation are expected to produce a unique method to measure electronic properties of supported metal catalysts, and to make other contributions to the science of catalysis including: an ;itin situ;ro method that allows data determination under a range of operating conditions; data on the alloy effects when two or more metals are present as small clusters on non-metallic supports; a new method to characterize bulk catalysts; and new evidence to help understand the detailed mechanisms of strong metal support interaction.